Fostering STEM Trajectories: Bridging Early Childhood Education Research, Practice, and Policy

Fostering Science, Technology, Engineering and Mathematics Trajectories: Bridging Early Childhood Education Research, Practice, and Policy

Early childhood education is at the forefront of the minds of parents, teachers, policymakers as well as the general public. A strong early childhood foundation is critical for lifelong learning. The National Science Foundation has made a number of early childhood grants in science, technology, engineering and mathematics (STEM) over the years and the knowledge generated from this work has benefitted researchers. Early childhood teachers and administrators, however, have little awareness of this knowledge since there is little research that is translated and disseminated into practice, according to the National Research Council. In addition, policies for both STEM and early childhood education has shifted in the last decade.

The Joan Ganz Cooney Center and the New America Foundation are working together to highlight early childhood STEM education initiatives. Specifically, the PIs will convene stakeholders in STEM and early childhood education to discuss better integration of STEM in the early grades. PIs will begin with a phase of background research to surface critical issues in teaching and learning in early childhood education and STEM. The papers will be used as anchor topics to organize a forum with a broad range of stakeholders including policymakers as well as early childhood researchers and practitioners. A number of reports will be produced including commissioned papers, vision papers, and a forum synthesis report. The synthesis report will be widely disseminated by the Joan Ganz Cooney Center and the New America Foundation.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed project.